Combustion Synthesis of Refractory Materials

The primary aim is the development of an economical synthesis of high temperature refractory materials such as titanium, silicon and aluminum nitrides through gas phase combustion processes that have sufficient energy release to sustain the formation of the refractories without the need for external heating. Thermodynamic calculations performed for a variety of initial temperature and pressures have indicated that "thermite" types of reactions can generate high yields of refractory product. An experiment in which a column of metallic sodium would be burned in a flowing atmosphere of nitrogen and gaseous metallic chloride will be used to verify if equilibrium thermodynamics do in fact determine the product distribution of the reactions. This one year award is to determine the overall process characterization as well as its potential for the economical manufacturing of ceramics. If the preliminary experiments support the efficacy of these types of reactions, two implementation steps will be submitted for later NSF funding. First a sodium spray system would be built so that droplets of sodium could be reacted more efficiently in the flowing nitrogen and metallic chloride atmosphere. An additional experiment that uses the stirred reactor conditions of a rocket engine to promote the heat feedback necessary for sustaining the continuous chemical reaction of titanium and nitrogen alone and for increasing as well the refractory product yield economically would be also proposed.